Workshop on Research Opportunities in High Temperature Superconductors, April 11-12, 1988, Copper Mountain, CO

This award will provide partial support for a Workshop on Research Opportunities in High Temperature Superconductors in Copper Mountain, Colorado. There are now so many directions to follow in high temperature superconducting research, that some organization of the research effort is necessary to take advantage of the new discoveries of the past year.